University of New Hampshire Connection to vBNS and Internet 2

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to an approved high performance network. Applications include several projects related to the Earth, Oceans and Space (EOS) Institute, and other research initiatives in the social sciences, applied science and chemistry. Collaborating institutions include the Marine Biological Lab at Woods Hole; the Lawrence Livermore, Oak Ridge and Sandia National Labs; and the Jet Propulsion Lab; and MIT.